Practicing Inquiry Science in a Field Based Setting

9908080
CHOPYAK-MINOR

The Keystone Science Center will host a conference to strengthen and improve teaching in a field setting through an inquiry-based approach and using the National Science Education Standards and the Colorado State Science Education Standards. The three-day program will involve 40 educators and education partners from across the State of Colorado, along with some national experts. An instructional model developed by the Keystone Center entitled "Framework for Inquiry-based Science and Student Decision Making" will provide the matrix for the development of proceedings that will be disseminated on the Web and published in hard copy.